EAGER: SCALE 2 (Safe Community Awareness and Alerting) - Extending a SmartAmerica Challenge Project

SCALE2 explores the design of resilient, inexpensive cyber-physical systems (CPS) technologies to create community-wide smartspaces for public/personal safety. SCALE2 aims to demonstrate that community safety can be realized by augmenting CPS technologies with end-to-end resilience mechanisms. Such a study requires real-world community-scale deployments to understand citizen concerns and can only be achieved through partnerships between various stakeholders - researchers, government agencies, and industry.

The SCALE2 multisensory platform will use inexpensive Internet of things (IoT) components, and support dependable operation by enabling resilient information-flow through multiple system layers. Research will explore mechanisms for (a) ingest of real-time data through flexible rich data models, (b) Quality of Service (QoS)-aware messaging to cloud platforms, and (c) reliable detection of higher-level community events through semantics-driven virtual sensing. SCALE2, through its established partnerships/testbeds, offers a unique short-term opportunity to guide future resilience technologies, train the next generation of students and have broader community impact. SCALE2 will be deployed at Montgomery County, MD, and the Irvine-Sensorium working with local agencies.